Research Initiation: Multiproduct Inventory Models with Demand Substitution

Demand substitutions are common in practice, in the manufacturing, distributions and service industries. An example where downward substitution structure arises is the steel industry where steel beams of greater strength can substitute for beams of lesser strength. This project will develop a general framework which identifies properties of the optimal policies and efficient algorithms to calculate the optimal policies for large size and real life problems. There are few studies that deal directly with the problem of demand substitutions, and most of them deal with only the specific case of two products. The models and solution techniques are useful in solving a variety of problems like safety stock locations, and allocations of cards to customers in the car rental industry, and the yield problem in the airline industry.